Upgrade of the Paleomagnetism/Rock Magnetism Laboratory at the University of Southern California

EAR-0349894
Lund

This grant will permit the University of Southern California to augment our current paleomagnetic and rock magnetic facilities through the purchase of three pieces of major equipment. Each of these would significantly expand the overall range of our research capabilities and significantly improve the speed and quality of data acquisition. The three pieces of equipment are as follows: Princeton Measurements Corporation MicroMag Model 2900-02 Alternating Gradient Magnetometer (AGM) with cryostat; AGICO Model KLY-4S Spinner Kappabridge; and D-Tech Model D-2000 Alternating Field Demagnetizer (this system will replace our current 20-year old Schonstedt GSD-1 af demagnetizer). There are three active research programs in the Department of Earth Sciences with several NSF-funded projects that will use these facilities: paleomagnetism, rock magnetism, and environmental magnetism studies of Lund; structure/tectonic studies of Paterson/Lund; geobiology studies of Nealson/Popa.